Analysis of High Dimensional Data Using Subspace Clustering

An important and visible trend in empirical science today is
the increasing prevalence of large data sets that contain from thousands to
hundreds of millions of measurements. Examples include data sets arising
from high throughput measurement techniques such as gene expression arrays,
proteomics and computer network monitoring. While the analysis of large
data sets is important to scientists, it is often outside the realm of
classical statistical methods, and frequently presents new conceptual and
computational challenges. The funded research has two principle parts. In
the first, the investigators are studying the application of a relatively
new development in the field of Data Mining, known as subspace clustering,
to the exploratory statistical analysis of high dimensional data. In the
second, the investigators are applying ideas from Statistics and Probability
to the development of new subspace clustering methods, and to rigorous
mathematical analyses of their results. Research is being carried out in
the context of ongoing collaborations with biological scientists, and is
being incorporated in software that will be used by the collaborating
scientists to identify and assess significant sample-variable
associations in a variety of large data sets.

An important and visible trend in empirical science today
is the increasing prominence of large data sets that contain from
thousands to hundreds of millions of
measurements. Examples include data sets arising from high throughput
measurement techniques such as gene expression arrays, proteomics and
computer network monitoring. Whereas small to moderate data sets typically
have more samples than measurements, in large data sets it is common to have
more measurements than samples, so-called ``high dimension and low sample
size''. The investigators are studying the application of data mining
methods known as subspace clustering to the exploratory analysis of high
dimensional data. Subspace clustering identifies distinguished sample
variable interactions (submatrices) in a given data matrix. Unlike standard
two-way clustering, the sample and variable sets for different clusters can
overlap. The investigators are investigating the noise sensitivity of
existing subspace clustering algorithms, and are developing and
implementing new subspace clustering methods for average based selection
criteria that are better suited for applications where noise is present.
As an application of these methods, they are using subspace clusters to
classify high dimensional data. Using a variety of tools from combinatorial
probability, the investigators are also developing a rigorous theoretical
framework in which multiple testing and the statistical significance of
subspace clusters can be addressed. The funded research is being carried out
in the context of ongoing collaborations with biologists and computer
scientists.